U.S.-Italy Workshop on the Role of Software Architecture in Testing and Analysis: Marsala, Italy, July 1-3, 1998.

This award supports the participation of eight US participants to a US-Italy workshop investigating the role of software architecture in testing and analyzing complex systems. The co-organizers are Debra Richardson of the University of California, Irvine, and Paola Inverardi, University of Aquila in Italy. The workshop's objectives are to identify the appropriate uses of formalized software architectures as the abstract basis for analysis and testing, and establishing a research agenda for cross-disciplinary investigation. Software engineering is strong in Italy, and there is a growing interest in software architecture, testing and analysis, and the interaction between the two disciplines. The workshop will lead to new collaborations between US and Italian participants and advance understanding of the area of software architecture that could become a significant force in organizing approaches to software development.